Enhancement of the Undergraduate Curriculum Through Acquisition of a Fourier Transform Nuclear Magnetic Resonance Spectrometer

Acquisition of a multinuclear (1H, 13C, 19F, 31P) Fourier Transform Nuclear Magnetic Resonance (FT-NMR) spectrometer will have a significant impact on the undergraduate chemistry curricula. Educational opportunities in eight existing courses will be significantly enhanced, including Instrumental Analysis, Advanced Instrumental Analysis, Organic Chemistry, Advanced Organic Chemistry, Advanced Inorganic Chemistry, Biochemistry, Physical Chemistry, and Elements of Research. This instrument will provide the students with analytical capabilities to determine both 1D and 2D-NMR spectral data for proton, carbon, fluorine, and phosphorous. The FT-NMR will significantly enhance laboratory studies for students in conventional and research courses, with improved data for structural elucidations, kinetic studies, and characterizations of complexes. The FT-NMR will also be used for workshops that include instructors and students from both high schools and two-year colleges.